Nonlinear Dynamics of Premixed and Diffusion Flames

0072588
Matalon

The objective of the proposed work is to derive and analyze mathematical
models that describe the dynamics of flames. The models will be derived
systematically from the conservation laws of mass, momentum and energy
by means of asymptotic methods and analyzed using analytical and
numerical methods. It is proposed to identify mathematical models that
contain enough details of the real combustion systems and analyze these
models in order to gain basic understanding on how the physical and
chemical processes interact in the simpler circumstances. Comparison
with the experimental record will be performed in order to test the models
and their predictions. The mathematical problems involve nonlinear
evolution equations and nonlinear aspects of flame instabilities.

The objective of the proposed work is to gain fundamental understanding
in the complex processes occurring in combustion problems, problems that
are encountered in various engineering applications. Improving our
fundamental understanding of combustion phenomena could suggest new
directions for applied research and lead to a better design of combustion
systems. The problems that will be investigated are related to phenomena
that have been observed in the laboratory but are not yet completely
understood. The proposed work will address three classes of problems:
The first class is concerned with the evolution of premixed flames in open
space and in confined environments, where the coupled effects between
the flame and the hydrodynamic field is of primary interest. Studies of
premixed flames have significant technological importance and are
directly applicable to internal combustion engines processes. The second
class of problems is concerned with instabilities in non-premixed
combustion, or diffusion flames, for which theoretical studies are only
now emerging. Non-premixed conditions are favored in furnaces for safety
reasons and in diesel engines here the liquid fuel evaporates in the
combustion chamber providing the necessary fuel vapor that burns with
air. The third class of problems is concerned with flame spread over
flammable liquids, where the combined behaviors in the liquid and gas
phases determine the flame dynamics. Flame spread over an accidental
spillage of a flammable liquid, or a "running liquid fire" encountered in
petrochemical industries, can become a fire hazard.